CNS Core: Small: Semeru: A memory-disaggregated managed runtime

Modern computing relies heavily on cloud computing systems. The cloud computing systems are powered by large datacenters. Each datacenter contains thousands of machines deployed across the globe. These datacenters are often equipped with heterogeneous hardware devices designed for different kinds of workloads. The ability to use these many machines and devices efficiently and reliably is key to the quality of the services they may provide, and therefore paramount to cloud computing system providers. Recently, resource disaggregation has been proposed as an effective means to improve datacenter reliability and resource utilization. Resource disaggregation builds each resource type as a standalone resource, called a “blade", and connects different resource blades with a network. The Semeru project develops runtime and operating system (OS) support that allows users to run managed cloud applications efficiently in resource-disaggregated datacenters.

Semeru focuses on three major thrusts for improving locality for applications and garbage collection (GC) that manages memory for these applications. First, it develops a unified memory abstraction between the Central Processing Unity (CPU) and memory servers, referred to as the Unified Java Heap. This allows CPU and memory servers to see the same virtual address space for the Java heap. Second, it develops a distributed garbage collector (GC) that offloads part of the GC to memory servers, utilizing their idle and weak compute capability to perform continuous, close-to-data object tracing. Object tracing can significantly improve the GC performance. Third, it co-optimizes the runtime and OS kernel so that the OS can provide efficient swapping support as well as new system calls for the runtime.

The Semeru project builds a memory-disaggregated runtime for managed cloud workloads, making it possible to translate low-level hardware advances to visible performance benefits that managed cloud applications can enjoy. The development of the project includes a postdoctoral scholar as well as several graduate and undergraduate students, including students from minority groups. It not only advances the state of the art of resource disaggregation, but also trains current and future computing system developers.

The project produces a set of artifacts including technical reports, published papers, as well as code repositories. These artifacts are all made available online at http://www.cs.ucla.edu/~harryxu.